III-CXT-Small: Graphs to Diversity: extracting genomic variation from sequence graphs

Recent advances in genome sequencing technologies have enabled the
sequencing of bacteria directly from the environment, providing a
broader outlook on the diversity of bacteria than ever before
possible. Recent studies of environmental samples have revealed
complex communities containing many previously unknown species, and
uncovered a large amount of genetic variation and diversity even among
closely related strains. Characterizing this genomic variation is
critical in studies of microbial ecology and evolution, yet currently
available computational tools, originally developed for the study of
single organisms, are ill-suited for this task.

This proposal aims to develop the theoretical and computational
infrastructure for the study of genomic variation within mixtures of
organisms. The proposed research relies on both theoretical and
empirical analyses of the structure of genome assembly graphs in order
to characterize graph signatures that are correlated with intra- and
inter- species polymorphisms. A particular focus is placed on
understanding and using the information provided by next generation
sequencing technologies as well as other high-throughput experimental
techniques. The proposed work provides critical analysis tools
to help biologists explore the genetic variation within the
environment.

Additional information about this project is available at
http://www.cbcb.umd.edu/research/Genomic_Variation.shtml.